Creation of a GIS for Six Cities in Arid Environments : In Morocco, Senegal, Mali, Niger, Tanzania, and Botswana

9817743
Park

The researchers would use remote-sensing images from 1982-98 to document urban change in six African cities and contrast what happens in urban areas with development in urban hinterlands. In work weighted toward the poorer sections of the cities, households would be interviewed to learn about livelihood strategy histories, relationships to natural resource use, and impacts of changes in urban structure.The results would be used to assess the effects of various projects and to initiate hypotheses that could be tested in later studies. A preliminary hypothesis is that the process of urbanization in arid Africa has produced a new poor, people whose lives are shaped more by collective use of aid than by individual maximizing behavior. If this is true, the information can be used in urban planning as well as in furthering the understanding of African urbanization.